U.S.-Finland Cooperative Research: Theory of Josephson Effects in Superfluid Helium-3

This award supports Professor James A. Sauls of Northwestern University in a research collaboration with Professor Juhani Kurkijarvi of the Abo Academy, Abo, Finland. They are carrying out a theoretical study of the Josephson effect in superfluid helium-3, with the goal of understanding the crossover from dissipative behavior to non-dissipative superflow in weak links. Calculations will be done of the Josephson current-phase relation and the maximum critical current that can be supported by a weak link in superfluid helium-3. This work should provide a sufficiently realistic description of the superfluid to be a valuable guideline for the design of experiments to measure the Josephson effect. Both investigators have substantial experience in the quasiclassical theory of superconductivity and in numerical solutions of the quasiclassical equations. Dr. Kurkijarvi has particular expertise in the theory of superconducting Josephson devices, while Dr. Sauls is an expert on the properties of superfluids. As a team they have outstanding qualifications for the proposed work, which should produce the theoretical basis needed to advance understanding of the physics of quantum effects. The discovery of superconductivity in the heavy fermion metals has generated considerable interest from theorists and experimentalists working in low temperature physics. Quantitative calculations of the properties of superconductors with strong spatial variations, e.g., weak links and tunnel junctions, are among the hardest theoretical problems to solve in the field of superconductivity. The quantitative calculations of the properties of weak links in superfluid helium-3 that will result from this collaborative research should provide qualitative insights into weak links connecting unconventional superconductors and lead to more successful devices based upon the Josephson effect.